Inverse methods for tuning dynamics of complex fluids

Truskett, Thomas M.
CBET-1065357

Diffusing Probes of kT-scale Specific Protein-Protein and Protein-Carbohydrate Interactions

This project is concerned with using Diffusing Colloidal Probe Microscopy (DCPM) to directly
and nonintrusively measure kT and nanometer scale interactions of surface immobilized proteins and
carbohydrates. Ensembles of freely diffusing colloids will be employed as ultra-sensitive probes to
measure energy vs. separation dependent protein-protein and protein-carbohydrate potentials of mean
force (PMF) between proteins/carbohydrates attached to colloids and planar surfaces. By using
evanescent wave and video microscopy, DCPM will monitor three dimensional Brownian excursions of
protein decorated colloids near homogeneous, heterogeneous, and patterned substrates with covalently
attached and oriented proteins/carbohydrates. Because diffusing probes sample spatial positions according
to their relative energies, statistical mechanical analyses of diffusing probes can be interpreted as net
PMFs including superimposable non-specific (colloidal, macromolecular) and specific (residues,
conformational) contributions. DCPM will interrogate protein and carbohydrate interactions by exploiting
natural gauges accessible with diffusing colloidal probes including Brownian time scales (a2 /D), thermal
energies (kT), and molecular length scales (nm) (and hence weak forces (~fN)).

The intellectual merit of the proposed research is related to the fundamental and technological
insights that will be gained into immobilized protein-protein and protein-carbohydrate interactions.
Specific biomolecular interactions to be investigated include: (1) Ca2+ dependent homophilic and
heterophilic cadherin interactions on supported lipid bilayers, (2) CD44-hyaluronic acid (HA) interactions
in the presence of competing oligosaccharides. Cadherins are transmembrane proteins whose interactions
play a critical role in determining cell adhesion in cellular processes including for example tissue
morphogenesis, synaptic plasticity, apoptosis, and cancer metastasis. CD44 is the main cell surface
signaling receptor for HA, which is an extracellular matrix component. As a result, CD44-HA interactions
regulate cell-cell adhesion, cell migration, morphogenesis, cell proliferation, cell signaling via regulation
of gene expression and RNA splicing, cell differentiation, and metastasis. Ultimately, measuring how
immobilized cadherin-cadherin and CD44-HA interactions are influenced by physical, chemical, and
biochemical variables is important to understanding fundamental biology and biomedical applications.
The first task of the proposed work is to covalently attach/orient proteins and carbohydrates onto
silica colloids and surfaces either with or without supported lipid bilayers. To allow for deconvolution of
non-specific and specific contributions to net potentials, the second task is to measure how the
interactions of covalently attached/oriented carbohydrates and proteins are influenced by varying solution
chemistries (e.g. ions, small molecules), physical configuration (e.g. orientation, spatial organization),
competitive interactions (e.g. antibodies, monosaccharides), and biochemical variations (e.g. different
types, mutations). The last task is to measure non-specific and specific interactions on model arrays
consisting of patterned regions of carbohydrates or covalently attached/oriented proteins. Successful
completion of proposed objectives will demonstrate a conceptually new approach to directly and
sensitively quantify kT-scale non-specific and specific interactions that control non-covalent, equilibrium
binding of proteins and carbohydrates immobilized on particles and surfaces.

The broader impacts of the proposed research include scientific and technological outcomes as
well as integrated education and outreach activities. The ability to directly and sensitively measure weak
interactions between proteins and carbohydrate on synthetic material surfaces provides information to
enable many biomedical applications involving diagnostics, devices, therapeutics, drug delivery, and
tissue engineering. Such understanding provides a basis to quantitatively design, control, and optimize
(formally engineer) the properties and behavior of immobilized proteins and carbohydrates in biomedical
applications and provide new insights beyond what is known from trial-and-error discovery. In terms of
education, research images/videos will be incorporated into undergraduate thermo and graduate
colloid/polymer elective courses and execution of the proposed research will involve training
undergraduate and graduate students. In terms of outreach, content involving optical microscopy of
colloids will be adapted for use in programs for 7-12 students and public museum presentations.